AMP: Science Student Internship Program (SSIP)

HRD-9903591
McBay

The Quality Education for Minorities (QEM) Network is requesting a three-year grant from the National Science Foundation (NSF) to provide continued support for the QEM Network's Science Student Internship Program (SSIP). NSF support would be used to provide ten-week summer science policy/research internships at NSF to five students. Specifically, QEM is requesting funding for the three-year period (Fiscal Years 1999-2001) at the current funding level of $60,000/year.

Each year of the grant period, five talented students (one graduate and four undergraduates) majoring in science-related fields will be placed in internship position with mentors at NSF during the summer. The selected students will have ten-week, full-time internships with the additional responsibility of carrying out science-related community outreach activities when they return to their respective campuses the following academic year.